A World in Motion II: The Design Experience (Formerly "All Systems GO!")

Boynton 9617977 A World in Motion II: The Design Experience engages students in authentic engineering design challenges that are the context for learning mathematics, science, technology, education, social science, and language arts concepts and skills appropriate to middle school students. This project is based on the engineering design experiences for seventh and eighth grades. It provides support for teachers in their understanding of the design experience and of learning goals for students. The materials include short papers, how-to instructions, assessment items, and videos demonstrating classroom experiences, technical instructions and assembly of materials. In addition a sixth grade challenge that can be used in stand alone classrooms or in team situations provides a bridge from World in Motion I to the engineering design experience. The evaluation provides data demonstrating the effectiveness of the materials.